Observational and Theoretical Cosmology and Related Topics

A broad set of research projects concerning galaxies, quasars, gravitational lenses, clusters of galaxies, and globular star clusters will be carried out. Although substantial theoretical research will be done, the primary thrust is observational. The theoretical programs are attempts to understand, model, or predictbasic observational results. Some instrumental enhancements uniting all of these programs have improved our understanding of the nature, origin, and evolution of the fundamental classes of extragalactic objects above. It is hoped and believed that such an improved understanding will provide critical insights into the properties of the Universe as a whole, that is the cosmology of the Universe. The specific projects are intended to provide 1) a detailed model for infall dominated galaxy formation, 2) a direct determination of the nature of galaxy evolution in faint clusters, 3) a statistically useful sample of gravitational lenses, 4) detailed observational studies of known lens systems, 5) a detailed study of the properties of distant clusters of galaxies, 6) a determination of the quasar luminosity-redshift distribution near the cutoff, 7) a clear determination of the nature of the remarkable quasar pair 1146+111B, C 8) detailed dynamical and population models for several well studied globular clusters, 9) a sample of faint variable objects located by an automated survey, 10) an elucidation of several detailed aspects of the internal dynamics and interactions of galaxies, and 11) a model of the effects of Malmquist biases on the extragalactic distance scale and determinations of peculiar velocity fields.